Obsidian Flow Emplacement

9805305
Manga
The absence of historically observed obsidian dome eruptions limits efforts to constrain the flow behavior of high-silica lavas. This project is an investigation of microstructural evidence of flow dynamics in Late Holocene (less than 2000 years old) obsidian flows in California and the Pacific Northwest. Drill cores obtained from the Inyo Domes Research Drilling Project in California preserve a nearly pristine record of microscopic textural and structural evolution of the dike, vent, and subaerial regions of the Obsidian Dome system. An innovative technique to measure the three-dimensional orientations of microlites (small crystals) will be employed. These measurements, combined with theoretical models, provide a framework for determining the relative timing of degassing, crystallization, and flow advance. Three-dimensional orientations can be used to infer conditions of flow, for example, the type of flow (pure versus simple shear), the amount of strain, and the strain-rate. For example, preliminary measurements of microlite orientations from Little Glass Mountain agree well with theoretically predicted orientation distributions of rods in simple shear flows. This project will yield information that will assist in assessing volcanic hazards associated with obsidian dome eruptions.